MPWG: Girls Rise (Raising Interest in Science and Engineering)

Girls RISE (Raising Interest in Science & Engineering) is a model program that will showcase how an informal, non-competitive learning environment that includes hands-on, reality-based applications of engineering principles and teamwork, can build confidence and encourage girls to develop an interest in science, engineering and mathematics and related careers. Project objectives are: (1) to build competent, confident, enthusiastic learners equipped with an array of advanced computer and technology skills; (2) to expose girls to a variety of engineering careers through interaction with professional women employed in science and engineering related fields; (3) to increase girls confidence in their ability to perform in traditionally male dominated technical and engineering arenas while improving their problem solving and information processing skills; (4) to foster sustained participation in engineering-related studies, reducing the attrition that occurs as girls move from the middle school to the high school level. The project builds upon the work the Miami Museum of Science conducted with under-represented youth, and includes several key components that have proven successful in related projects. These include: the acquisition of advanced computer skills; the use of college level mentors as instructors; interaction with professionals in their workplace; project based, active learning; and paid internships.